Seafloor Samples Laboratory

9414202 Curry Funds are provided for the continued operation of the deepsea core and dredge samples' repository at Woods Hole Oceanographic. These samples are vital to our understanding of the past and present oceans, climates and events on the continent. Newly acquired cores will be integrated into the curatorial system and the old cores and dredges will be continued to be curated and distributed to scientists requesting samples. The core lab at WHOI also serves as a center for design and development of tools for marine geological sample acquisition. ***